UBVRI Standard Star Photometry Around the Sky

AST-0503871
INSTITUTION: Louisiana State University
PI: Arlo Landolt

TITLE: UBVRI Standard Star Photometry Around the Sky

ABSTRACT

Dr. Arlo Landolt of the Louisiana State University will undertake a program to provide completely new UBVRI photometric standard stars that will be about 100 times fainter than those now available. The goal is to provide a resource for the astronomical community that will be usable for observations with the largest ground-based and space-based optical detectors, both those that are currently in existence, and those under construction and in the planning stage. The specific goal is to extend faint calibration sequences by 5 magnitudes so that the limits of interpretation in data will be scientific, and not those of calibration.